Symposium on Unconventional Vertebrates as Animal Models in Endocrine Research; December 5-6, 1988; Bethesda, MD.

This workshop/conference focuses on the development of alternative animal models for research in vertebrate endocrinology. The topic is timely and important because of current general concerns for animals used in scientific research. The workshop will assess the current status of research efforts in this area and evaluate suggestions/plans for alternative courses of action.